Symmetry Principles in Strongly Correlated Systems

9814289
Zhang
This award supports research on materials with strong electronic correlations. The electronic states in these materials involve many strongly coupled degrees of freedom. Symmetry principles are explored as a non-perturbative means of extracting information on strongly correlated electronic states and of organizing the low-energy degrees of freedom in these materials. The PI aims to further develop his proposal that SO(5) symmetry is a unifying principle of antiferromagnetism and superconductivity in the high temperature superconductors.
%%%
This award provides educational opportunity and supports theoretical research that seeks a better understanding of the phenomenon of high temperature superconductivity. The PI will explore an innovative idea that he proposed and that is based on a unified description of antiferromagnetic and superconducting states that occur in the high temperature superconductors.